Low Reaction Force Nozzle Using Unsteady Flow

This SBIR Phase I investigation is focused on the demonstration of a reactionless nozzle for creating large mass flows without reactive thrust. This is intended to be achieved with an unsteady, pulsed design in which pressure waves propagating upstream are dissipated by frictional effects.